Career: The Personal Terabyte Disk: Managing and Exploiting Large Future Magnetic Disks

Magnetic disk drives are expected to increase in capacity and drop in price at a rate of over 50% per year for at least a decade. By 2010, a terabyte of magnetic disk storage for personal computers will cost a few hundred dollars. The Personal Terabyte Project is developing a set of tools for managing and exploiting this large personal data repository. To guarantee reliability of personal terabyte data, backup techniques including compression, incremental backups, and selective backups of essential data will be implemented, as will disk array redundancy techniques. Future homes will have a variety of network connections, from high-bandwidth, inexpensive broadcast connections to higher-cost, lower-bandwidth point-to-point links. The personal terabyte will cache relevant data that arrives on broadcast networks and aggressively prefetch additional data over point-to-point, on-demand connections. As data are stored on the personal terabyte, the toolkit will perform automatic indexing of text, images and video to facilitate finding data on the massive file system. To address the gap between memory and disk access times, the toolkit will prefetch data from disk to main memory. Finally, to improve application performance, the toolkit will facilitate sharing of the disk cache among local and remote processes.***